Mathematical Sciences: Bayesian Methods for the Analysis of Categorical Data from Similar Sources & Nonlinear Time Series Analyses-Theory & Applications

This award will support the research of two individuals in the area of statistical sciences. Dr. Nandram will develop bayesian methods for the analysis of categorical data from similar sources. Dr. Guo will work on three different problems in the analysis of non-linear time series. Together, these two projects represent interesting problems in modern statistics. This award will support the research of two individuals in the area of statistical sciences. Dr. Nandram will develop bayesian methods for the analysis of categorical data from similar sources. One example of categorical data would be "yes" or "no" responses in questionnaires. Dr. Guo will work on three different problems in the analysis of non-linear time series. Together, these two projects represent interesting problems in modern statistics.